An Empirical Assessment of Determinants of Differences in Women's Perceived Satisfaction With Occupational and Familial Roles

In this proposal, our purpose is to ascertain the determinants of job satisfaction and happiness with family life from among twenty-six variables that are believed to have an influence upon both. In order to determine the relative importance of the variables in accounting for the variations in both job satisfaction and happiness in family life, a block-recursive model depicting the bariable relationships has been developed and is to be subjected to empirical testing on a sample of 13,926 black and white female respondents. The theoretical model will allow us to determine which factors are the most important in determining job satisfaction and happiness with life. In addition, it is perceived that the use of a block- recursive model will clarify some of the confusion existing in the current body of literature regarding the determinants of job and family satisfaction, while, at the same time, enable us to suggest a more parsimonious theory regarding the interrelationship of the variables. The assessment of the relationships of the variables will be simplified through the use of multiple regression techniques with a multiple-partial correlational analysis. This technique provides useful statistical data and tests of statistical significance regarding the interpretation of the data, and generalization of the findings to the general population of English speaking, female residents of the United states who are 18, and who do not reside in an institutional environment.